Laser Control of Molecular Motion and Quantum State Character Through Coherence Effects

This proposal provides funds for the purchase of a combination laser-amplifier system that would allow the PI to enhance her activities in the area of control of molecular motion and quantum state character through coherence effects inherent in the laser-molecule interaction. This control is achieved through the exploitation of the Autler Townes splitting and electromagnetically induced transparency in simple molecules. If successful, quantum control using these coherence effects would complement control achieved through ultrafast laser systems.